Presidential Young Investigator Award

The research plan will consist of: (a) Quasicrystal growth and structure. There is still a great deal of controversy whether the disorder observed in real quasicrystals is intrinsic to this phase of matter or just a consequence of non-optimal growth conditions. A particular non-equilibrium model of growth appears to reproduce both qualitatively and quantitatively the disorder observed in diffraction experiments. A more difinitive comparision will be devised since the structures generated by this model very definitely are characterized as having intrinsic disorder, similar to a glass. Progress in this direction may be made by using the electron microscope in a more quantitative capacity than previously. (b) Low temperature physics. Beyond the work of Nagaoka and Thouless in the 60`s, surprisingly little is understood (even qualitatively) about the motion of a hole (vacancy) in a lattice of spin 1/2 particles (electrons, 3He). Examples: (1) Is the ferromagnetism induced by a single hole in a bipartite lattice stable when a finite density of holes is introduced? (2) What form of magnetic ordering is induced by a single hole in a triangular (nonbipartite) lattice? These are among the simplest, highly correlated fermion systems which are nontrivial and for which an intuitive understanding is completely lacking. Through the use of trial wavefunctions and various other computational techniques, these and similar problems will be investigated.